Trace Metal Removal by Biofilms in Wastewater Treatment Reactors and Natural Aquatic Systems

This is a recommendation to support research to characterize the removal of trace metals from dilute aqueous solutions by biologically active films in reactors that are designed to treat wastewater and films that develop on surfaces submerged in natural bodies of water. The metals to be studied are cadmium and lead. Results of this research are likely to be used in improving the engineering design and operation of biofilm reactors and in assessing the impact that trace concentrations of metals remaining in effluent will have on natural aquatic eco systems. In a previous project under NSF Grant No. 8304120, the investigators examined trace metal microbial interactions by film-forming, marine organisms. Results of this prior work will be applied to the objectives of the current project. The objectives of this project are consistent with those of the Environmental Engineering Program. The qualifications of the investigators are appropriate for the work to be done. This project will be conducted in a collaborative effort by three co-investigators representing capabilities in environmental engineering, chemical engineering and microbiology. Award is recommended as a three-year Continuing Grant the initial increment of which is in the amount of $139,806 for 12 months staring on February 1, 1987.